The Economics of Interjurisdictional Hazardous Waste Transport: Empirical Analyses of the Determinants and Consequences of Interjurisdictional Shipping & Dumping Fees

Arik M. Levinson University of Wisconsin SBR-959515057 This research will use detailed data to analyze interjurisdictional hazardous waste shipments in the United States. The conclusions of this research will have implications for policies affecting national and international transport of hazardous wastes. The research will look at the impact of hazardous waste disposal taxes. Preliminary results indicate that such taxes may be encouraging more on-site disposal of hazardous waste. It will also consider other factors that determine the transportation of hazardous waste. These include industrial composition, hazardous waste capacity, state taxes and regulations, transport cost, geographic concentration of waste generators, scale economies of waste disposal, and demographic factors such as population density, income, education, race and local activism. The effect of hazardous waste regulations on industries that generate waste will be examined. Finally, the economic and environmental effects of the Supreme Court's interpretation of the commerce clause of the U.S. Constitution will be examined.